Doctoral Dissertation Research in Geography and Regional Science

Theoretical understandings derived from the study of industrial North Atlantic nations may not be useful when applied to Third World settings. Argentina is an example of a nation that has had many of the resources necessary for robust industrial development in the twentieth century. Argentina's development process was thwarted, however, thereby calling into question current knowledge about processes of industrialization and regional development. This doctoral dissertation project will examine the development of the capital-goods industries of Mendoza, Argentina. In-depth interviews with chief executive officers of capital-goods firms will be conducted to uncover the origins, evolution, and current form of industrial governance systems. Information also will be collected about the material, information, and financial linkages among firms and local, national, and international economies. These interviews will be validated and complemented by data gathered from existing manufacturing surveys, public and nongovernmental industrial sector reports, economic censuses, and information from interviews with chief executive officers from other firms linked to the capital-goods enterprises in Mendoza province. This project will provide valuable information about and analyses of processes of industrialization and regional development in Third World settings. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.